Replacement of Psychology Research and Support Facilities

The proposal requests funds form the Academic Research Infrastructure Program for replacement animal research and support facilities for the Psychology Department within the Division of Natural Sciences in our Natural Science Learning and Research Center. Appropriate space for students and faculty will be provided. This space will contain a behavioral neuroscience research laboratory; a learning and conditioning research laboratory; the animal colony which contains areas for animal holding and quarantine, cage wash, food and bedding storage, waste holding/janitor's closet, storage, animal preparation, and a procedure room. Improved research space for faculty and student's research projects, in particular with the addition of Psychology 400/401 Directed Research (Undergraduate Thesis in Psychology) and the increase in student/faculty research over the past three years, will provide students and faculty with the kind of research facility they require to fully engage in mammalian research in the scientific study of psychology.//